Theoretical Evolutionary and Seismological Studies of Hot Highly Evolved Stars

One of the most exciting breakthroughs of the 1980's in stellar physics is the study of nonradial pulsations to the study of the interiors of white dwarf stars. Much of the previous success of previous efforts has been because of the ability of astronomers to match observed periods in white dwarf variable stars to periods computed from theoretical models determined by the Principal Investigator (PI). In this three year program the PI will extend his previous work to evolutionary models of stars and will enable the effects of changes in the star's structure from its evolution to be predicted for timescales considerably shorter than a human lifetime (e.g. a decade). This work will also permit the effects of important but hithero only crudely treated processes, such as chemical separation, to be included in these calculations. This work will have application not only to the study of white dwarf evolution but to the studies of "asteroseismology" of other stars as well, possibly including the Sun.